Vibrational Spectroscopy of Polymer Morphology and Deformation

The central focus of this research is to obtain a better understanding of the formation of micro- or macro-structures for several classes of polymers and their transformation by application of mechanical stress, electric field or heat. The ultimate goal is to obtain a general model incorporating cooperativity and capable of defining the molecular mechanism responsible for macroscopic mechanical-electrical (piezoelectric) or mechanical-optical behavior of polymers. The research is to be carried out in several stages: 1. Technique development to measure structural changes with high precision and temporal resolution; 2. Clear definition of sample morphology; 3. Measurement of the response of chain conformation or segmental orientation of each structural subunit when stressed; 4. Comparison of experimental data to presently available theories to develop more complete models. The characterization of syndiotactic poly(styrene), which exhibits several solid-solid phase transformations, will be carried out. Identification of parameters governing mechanically induced polarization, or its converse, electrical field induced stress, for piezoelectric polymers will also be a primary area of investigation. These experimental data will be initially analyzed using a cooperative transition model.